Biochemistry of Hydrogenase: How it Oxidizes H2 and Reduces Protons

Although all hydrogenases oxidize molecular H2 and most also reduce protons, there are differences in the way the processes occur as reflected in their different cellular functions. Dr. Mortenson proposes to study three difference hydrogenases: a cytoplasmic Fe hydrogenase from Clostridium pasteurianum that catalyzes proton reduction to H2 oxidation during fermentation, a membrane NiFe hydrogenase from Azotobacter vinlandii that catalyzes H2oxidation coupled to electron transfer and energy generation, and an Fe hydrogenase from Clostridium pasteurianum that preferentially catalyzes H2 oxidation. Using biochemical, biophysical and molecular genetic techniques, he proposes to determine whether these enzymes use similar or different mechanisms when they react with or produce H2. These studies will determine the number of genes required, the function of their products in the synthesis and regulation of the hydrogenases and the biochemical and biophysical properties of the gene products. Results from these studies will be used as a basis for determine changes in properties of the hydrogenases when functionally important amino acids are changed. From this information, a detailed model of the active site will be constructed. In addition, a model demonstrating how the H2- activating center couples with its electron transferring centers during either H2 oxidation or proton reduction will be produced.